Workshop: International Conference on Biodiversity; Smithsonian Institution, Washington, D.C.; January 11-14, 1993

This support, along with that of the other federal agencies, will allow the Administration to host an International Convention on Biodiversity during January 11-14, 1992 at the Smithsonian Institution to discuss strategies, protocols and methodologies of assessing and surveying global biodiversity. The conference was organized by an interagency committee chaired by Tom Lovejoy, Assistant Secretary of the Smithsonian for External Affairs.